Intense and Super-Intense Atomic Physics with Micron-Sized Target Volumes

Two experiments are undertaken in the area of intense field atomic physics. The first experiment involves the study of electron correlation following intense field dissociation of diatomic molecules. The second experiment uses the same apparatus to explore collective ionization of multielectron atoms. A significant fraction of the research builds upon the instrumentation obtained through the NSF ARI Instrumentation award, PHY-9512313.